Long & Medium Term Research: Constraints on the Evolution of Breeding Date in Birds

Long & Medium-Term Research: Constraints on the Evolution of Breeding Date in Birds. This award recommendation is made under the Program for Long & Medium-Term Research at Foreign Centers of Excellence. The program seeks to enable U.S. scientists and engineers to conduct long-term research abroad at research institutions of proven excellence. Awards provide opportunities for the conduct of joint research, and the use of unique or compli- mentary facilities, expertise and experimental conditions in foreign countries. This award will support a 15-month visit by Dr. David A. Wiggins to Sweden to work with Dr. Lars Gustafsson of Uppsala University on "Constraints on the Evolution of Breeding Date in Birds." Most birds exhibit considerable variation in the timing of clutch initiations within populations. Because breeding date correlates with several components of fitness (clutch size; the number of young produced; the number of young recruited to the breeding population in subsequent years), breeding date is thought to be under considerable directional selection. However, despite significant heritability estimates for breeding date in natural populations of birds, several studies have failed to detect significant changes in breeding date. Recent work has suggested that breeding date fails to respond to selection due to a large environmental component affecting female nutrition. The researchers propose to carry out experiments on the timing of breeding in collared flycatchers (Ficedula albicollis) on the island of Gotland, a population unique in that a high proportion (25%) of fledged young return to the island the following summer, thus enabling quantitative genetic estimates from comparisons of adult and offspring reproductive traits. The researchers propose to both delay and advance the date of laying by manipulating eggs in a randomly chosen sample of flycatcher clutches, altering the clutch initiation date by approximately one week. In this population, differences of breeding date of one week have significant effects on most reproductive traits. The researchers will band all offspring from experimental and control nests and then compare the clutch initiation dates of these offspring in the following year with those of their mothers. This will allow the researchers to test the current models of the evolution of breeding date by estimating: 1) the magnitude of the environ- mental component of breeding date variance; 2) the heritability of breeding date; and 3) the evolutionary consequences of variance in breeding date.